U.S.-Poland Physics Research on Order, Chaos, and the AtomicNucleus (Maria Sklodowska-Curie Joint Fund)

The primary objective of this US-Poland research project under the Marie Sklodowska-Curie Joint Fund between Dr. William D. Myers, Lawrence Berkeley Laboratory, and Dr. Jan Blocki, Polish Institute for Nuclear Studies, is development of a quantitative theory of nuclear dynamics. The work will examine both classical and quantized particles in 1) potential wells of finite or infinite depth and possessing sharp or diffuse surfaces, 2) the wells undergoing periodic or aperidic shape changes of various multipolarities, and 3) fission-like deformations that span regimes of regular and chaotic nucleonic motions. These studies, in addition to advancing the theory of collective nuclear dynamics, are expected to contribute to our knowledge of the quantal behavior of a classically chaotic system. This project in nuclear dynamics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.